SSC: "On DEC 2000" Summer Science Academy

SSC-9350547 French River Education Center, Inc. N. Oxford, MA Hamadeh, Ann, Lou Horner, Michael Fields, Bernard Brown, and Josephine Corro This project conducts the "On DEC 2000" Summer Science Camp, a four-week science enrichment and career exploration project designed for fifty Black and Pacific Islander inner city seventh grade students. The project represents an alliance between the Boston Public Schools and, among others, Digital Equipment Corporation in which students participate for three consecutive summers. Students are exposed initially to careers in chemistry, physics, astronomy, engineering, and computing technology, through hands-on activities, guest speakers, mentors, and field trips to area universities and colleges. Returning students will select three of these courses for in-depth study in the second year, while third year students enroll in the course that most interests them and devote the entire summer to its study. New "freshmen" classes are recruited annually. Academic year follow-up activities include after-school science clubs and a "Science by Mail" program with the Boston Museum of Science.